Cavity Quantum Electrodynamics and the Quantum-Classical Correspondence

9317528 Gea-Banacloche Quantum-classical correspondence is studied in the context of cavity quantum electrodynamics. The objective will be to examine models which run the gamut from known quasi-classical cases to fully quantum mechanical ones in order to characterize those aspects of the dynamics which are only well described using the quantum theory. The work has interesting implications for the concept of quantum chaos. ***